Educational Applications of Computer Simulations of Chemical Engineering Processes

9354028 Squires A series of computer simulations of industrial-type chemical engineering processes designed to be used as senior-level chemical engineering laboratory experiments were developed on a previous grant. This project is porting five existing computer simulation software modules (presently written for Sun workstations) to HP, DEC, IBM, and Silicon Graphics workstations. It is estimated that this effort would triple to 36 the number of chemical engineering programs using the modules in senior-level courses. The project involves the application of the new modules at nine other participating schools also. ***